Cincinnati Symposium on Frontiers of Theoretical Physics and Mathematics; Cincinnati, Ohio; April 3-4, 1992

The main objective of this project is to host a symposium entitled "Topological Field Theories and Quantum Gravity." The two-day symposium is to be held at the University of Cincinnati on April 3 and April 4, 1992. The focus of the meeting is on a subject which is at the cutting edge of current theoretical ideas in Quantum Gravity and interacting relativistic field theory.